Connecting Episodes of Sexual Selection in Bioluminescent Fireflies

Animal courtship signals run the gamut from the spectacular iridescent eyespots displayed on male peacock tails to the subtle olfactory signals emitted by male moths. These signals convey important information about the signalers species, sex, and suitability as a mate, yet much remains to be learned about how a males signal variation can affect his subsequent reproductive success. In many insects, females mate with several males and these mating males do not share equally in siring a females offspring. Recent theoretical and empirical work has suggested that females may bias fertilizations towards particular males. This project will shed light on how a males courtship signals might influence not just his ability to attract mates, but also his post-mating reproductive success.
To help elucidate how male courtship signals affect post-mating success, this project will use Photinus fireflies as a highly accessible model system. These fascinating, nocturnally-active insects are well-known for their bioluminescent courtship signals. Using a combination of field behavioral observations, laboratory experiments, and artificially-generated flash signals, this project will test the hypothesis that males with more attractive courtship signals also gain higher paternity success. In addition, this project will measure chemical cues produced by male fireflies to determine whether females use multiple cues to assess male quality. This research will advance our understanding of animal behavior and communication systems by developing an integrated conceptual model of the processes leading to differences in reproductive success.
In addition to achieving these scientific goals, this research will yield considerable educational benefits. This project will provide research training for both undergraduate and graduate students, and contribute to the National Science Boards goal of bolstering retention rates among science majors. This project will also support Tufts Universitys strong institutional commitment to making active research participation an integral part of undergraduate science education. Lastly, through a strong commitment to working with print and broadcast media to disseminate results of this research, this project will promote better public understanding of science.